Designing Analog Circuits for Manufacturability

As the concepts of manufacturability and reliability, and the associated data acquisition systems become increasingly necessary to the analog design process in industry, it becomes correspondingly important to incorporate these concepts, as well as the equipment, into the undergraduate curriculum. Under this project equipment is to be acquired which will enable the emerging concepts of tolerance analysis and statistical design of circuits and systems to be added to the analog design portion of the undergraduate electrical (EE) and computer (CpE) engineering curricula. This technology is often labeled "Designing for Manufacturability," and refers to yield, reliability, and performance of circuits and systems. These curricular topics will be taught to all EE and CpE majors through laboratory experiments in the sophomore and junior years. This project is significant because it focuses on the early introduction of the basic concepts of design for manufacturability at the undergraduate level in analog design courses.